Workshop on Plant Molecular Biology, Washington, D.C.; October 11-13, 1989

A joint US-USSR workshop on plant molecular biology is proposed to be sponsored by the National Academy of Sciences, USA and the Academy of Sciences, USSR.. The workshop will be held in Washington, D.C. in October of 1989 and will be organized around three major themes: Molecular biology of plant viruses, viroids and other survival elements; Soil microorganisms in plant protection; and Engineering of molecular structures in plants and microbes. Soviet science is particularly strong in the field of virology. The younger Soviet scientists are significant organizing forces in the development of plant molecular biology in the USSR. The American contingent is composed of both established investigators and young scientists recently emerging as leaders in the field. This joint workshop will allow the timely interaction of these individuals who will play a major role in the field of plant molecular biology.